Science Consultant Program for Navajos in Northwest New Mexico

Navajo Community College has proposed a comprehensive program aimed at increasing the participation of Native Americans in science which includes (a) the use of Navajo or other Indian scientists and engineers as career and personal role models for youths, (b) summer teacher workshops, (c) comprehensive evaluation, and (d) a leadership role for the college in disseminating the fruits of its work to other native American colleges. Of particular interest in the project is the active involvement of Indian scientists from the Lawrence Livermore and the Los Alamos National Laboratories. In the final two years of the project, outreach and dissemination efforts will include invitational conferences for the contiguous reservation areas (year 3) and for all like colleges (year 4). In the course of negotiations the project evolved from a two (2) year effort to one that spans four (4) years. The Foundation is providing approximately 47% of total project costs.